EAGER: Understanding the genomes and strain mutations of SARS-CoV-2 and other viruses using comparative and population genetic approaches

Comparative genomics provides a powerful lens in which to understand novel genomes. This EAGER award sees to gain a deeper scientific understanding of the genomes and strain mutations of SARS-CoV-2 and other viruses by developing and applying innovative comparative genomic and population genetic methods leveraging the expertise of the investigators in these areas. These analyses will elucidate the relative contributions of evolutionary forces that shape the SARS-CoV-2 genome and other virus genomes across deep and recent evolutionary time scales and will pinpoint functionally important positions in their genomes. They will inform efforts of the broader scientific community to model the dynamics of infection, strategies for mitigation, and to develop therapeutics. This research will be integrated into educational programs that leverage the BIG summer undergraduate research program and the Computational Genomics Summer Institute at UCLA.

The specific aims are to develop and apply comparative genomic analyses for SARS-CoV-2 using multiple genome alignments of various coronavirus genomes. The work will leverage the recently developed ConsHMM method to annotate the SARS-CoV-2 genome at single nucleotide resolution into different conservation states. ConsHMM defines conservation states based on the combinatorial and spatial patterns of which species align to and match a reference genome using a multivariate hidden Markov model (HMM). These conservation states will be related to other annotations of the SARS-CoV-2 genome including (inter)genic and key protein regions. Population genetic approaches will be applied to publicly available sequences of the SARS-Cov-2 genome to infer fundamental properties of mutations. To estimate these parameters, novel structured coalescent-based models will be developed that account for demographic processes across multiple time points and locations. While the initial investigation will focus on the large collections of SARS-CoV-2 genomes that are becoming available, the methods developed will be applicable to the study of viral genomes (such as other coronaviruses, influenza, ebola, and HIV) and their strain mutations.